RUI: Distributions of Floating Point Sums

The mantissae of floating-point numbers are often assumed to be logarithmically distributed; that is they are assumed to have a reciprocal probability density function. Mantissae of products of floating-point numbers are logarithmically distributed when at least one of the factors has a mantissa that is so distributed. However, the logarithmic distribution of mantissae is not preserved under floating-point addition. The aim of this project is to derive a density function for the sum of two or more floating-point numbers that have logarithmically distributed mantissae and exponents that are not uniformly distributed. The deviation between the density function for this sum and the reciprocal density will be measured using a relative supremum norm. Error bounds will be derived for this deviation. The resulting density functions can then be used to compute probabilistic error bounds for floating-point sums.